U.S.-Australia Joint Workshop: Selection and Delimitation of Parks and Protected Areas/University of New England, Armidale, Australia/ January 1996

9513578 Friesema This award will support the participation of twelve U.S. investigators to take part in a workshop concerned with the delineation of appropriate boundaries for parks and nature reserves. The workshop will be held at the University of New England in Armidale, New South Wales, Australia, in late January 1996. The American organizers of the workshop are Dr. H. Paul Friesma, Director of the Environmental Policy Program at Northwestern University, and Dr. Ronald Sundell, leader of the ecology and natural resources team of the Argonne National Laboratory Center for Environmental Restoration Systems. The Australian organizer is Prof. John J. Pigram, Executive Director of the Center for Water Policy Research at the University of New England. The workshop is being conducted under the U.S.- Australia Cooperative Science Program and support in Australia is provided through the Australian Department of Industry, Science and Technology (DIST). Biophysical, sociocultural and managerial factors need to be considered in the selection and delineation of park and natural reserve sites. A key question is the determination of boundaries which will incorporate appropriate resource attributes and contribute towards the attainment of the goals and objectives of park management. Park and reserve boundary delineation issues are receiving increasing attention in both the U.S. and Australia as parks and reserves come under increasing pressure from a range of sources. The workshop will consider the assessments of ecological attributes, biophysical variables, managerial considerations and community attitudes deemed essential in the establishment and maintenance of parks and reserves. The workshop provides a timely opportunity to discuss common problems and concerns in the two countries.